Phylogenetic Relationships in Cheilanthoid Ferns (Adiantaceae) Based on Chloroplast DNA Restriction Site Variation and rbcL Sequence Data

The large numbers of ferns adapted to semi-desert or otherwise exposed conditions in the Southwest and Mexico have long perplexed taxonomists and biologists interested in the phylogenetic relationships and processes of evolution in these plants. With new biotechnological tools of molecular analysis, Drs. Gerald Gastony and George Yatskievych of Indiana University are studying genetic variation in chloroplast DNA of representative samples of genera and species of Cheilanthoid ferns of North America, to solve this problem. Because DNA is not subject to modifying environmental influences in the way that stems, leaves, and reproductive structures are, the comparison of nucleotide differences among species can reveal genealogical affinities of the species examined. By digesting the chloroplast DNA with enzymes that cleave the molecule at specific nucleotide sites (so-called restriction-site enzymes, developed from bacteria) comparative data from a large number of species can be obtained. Their preliminary data reveal extensive amounts of restriction-enzyme site variability, indicating extensive mutational differences among species. Computer programs will be used to analyze the data and to arrange species into the most probable evolutionary groupings on the basis of their shared DNA characteristics. This phylogeny will then permit detailed analysis of processes of speciation and of character convergence in these ferns in their adaptive evolution to harsh habitats.